Collaborative Research: A Study of Transient Aseismic Slip and Non-Volcanic Tremor in Southern Mexico With Large Aperture Seismic and GPS Arrays

Intellectural merit: Funds are requested for a joint geodetic and seismic study of
the Oaxaca-Guerrero segment of the Middle America subduction zone, one of the few places
on earth where land-based GPS and seismic observations can be used to study both the
locked, seismogenic area of a subduction interface and region of deeper transitional
slip, where episodic tremor and slip may originate. The principal scientific goal is
to better understand the recently discovered phenomenon of episodic slip transients
and its role in either relieving or increasing strain accumulating along the seismogenic
portion of a subduction interface. A pilot study during the past year shows that such
transients are occurring as frequently as every 12-24 months in this region, that
some transients (1998 and 2004) originate far outside the Guerrero seismic gap, and
that the transients may be accompanied by non-volcanic seismic tremors. Based on these
previously unrecognized results, deployment for 24 months of an 8-station broadband
seismic array and expansion of a regional continuous GPS array to include 4 critically
located stations in a region where the transients appear to occur are planned. The
new seismic array, which will span a
broad gap between two dense seismic transects being installed as part of the already
funded Caltech/UNAM Middle America Seismic Experiment, will allow detection and location
of any episodic tremors in the study area. Continuous GPS measurements from the
pre-existing GPS stations and nine new stations constructed by this group and
collaborator Enrique Cabral of UNAM will provide critical complementary information
about the source regions, magnitude, and timing of episodic slip. Data from an existing
smaller-footprint 30-station continuous and campaign GPS array that DeMets and Cabral
operate in Oaxaca above the Cocos-North America subduction interface will also be used
to study in more detail deformation within a conspicuous seismic gap analogous to,
but smaller than the well-known Guerrero seismic gap. The combined GPS and seismic
arrays will be a powerful tool for studying subduction transients and non-volcanic
tremor, and for imaging spatial and temporal variations in frictional coupling
along the locked and transitional zones beneath our network. Brudzinski, who will be
a new faculty member at Miami University of Ohio in August of 2005, will purchase the
necessary seismic equipment with start-up funds from his faculty position and will
have it prepared for a two-year deployment in early 2006. DeMets at UW-Madison will
coordinate the GPS station installation with Dr. Cabral, as well as a modest expansion
of the Oaxaca GPS network to improve coverage of the aforementioned seismic gap. The
UW-Madison geophysics group has a long history of deploying seismic and GPS networks
and will provide at no cost two expert technicians to help build and maintain the
combined seismic and GPS network. Responsibilities for modeling of the geodetic and
seismic observations will lie respectively with DeMets and Brudzinski.
Broader impacts: Episodic tremor and slip are a newly observed phenomenon that appears
to be related to many different aspects of earth science (seismology, tectonics,
petrology, and geodynamics), with possible ramifications for understanding triggering
of megathrust earthquakes. Students at Miami University will be offered a unique opportunity
to participate in a field workshop course that will coincide with the initial seismic
deployment, thereby exposing students to a geophysics field research. Broader impacts at
UW-Madison will include education of Mexican graduate student Francisco Correa-Mora,
who will do a substantial portion of his dissertation research on the mechanics of
subduction along the Middle America trench. The availability of new continuous and
campaign GPS and seismic data to the broader geophysical community will also
extend the impact of this work beyond our group, particularly once future transient
slip episodes and/or tremor sequences are recorded.